Political Design of Trade Policy with Incomplete Information

This project studies the design of international and domestic policies when a government has incomplete information about its own citizens or firms, or about its trading partners. Examples of incomplete information include the moving costs of trade- displaced workers, production costs of domestic or foreign firms, or political pressure faced abroad. The project applies for the first time the theory of the design of incentive compatible mechanisms to problems in international trade policy. In this theory, a government or international organization maximizes some social choice function, recognizing that the various agents may optimally misrepresent the private information they have. According to the revelation principle it is possible for the government to achieve its objectives by using truth-revealing or "incentive compatible" policies, i.e., policies which are designed so that the agents choose to tell the truth. In the examples given above, incentive compatible policies would lead workers to reveal their disutility of moving or foreign firms to reveal their production costs. Another feature of this research is that governments maximize an objective function based on political interests (such as votes or lobbying). Specific policy problems considered include: the ranking of trade and domestic instruments; international regulation of domestic policies; design of "status quo" trade, to be used when countries cannot agree on a policy; and design of incentive compatible mechanisms when countries cannot commit to a trade policy over time.